Academic and Cooperative Education Success For Freshmen Scholars

This scholarship program serves engineering students with strong academic and leadership potential. A pre-college summer program introduces prospective students to medical applications of engineering. The orientation program, designed and facilitated by student leaders, facilitates academic success and social success and assists in identifying support systems in the work setting. A team of industry representatives assists in mentoring student employees and an e-mail mentor network connects incoming students to graduates of Kettering University.